Topics in Arithmetic Algebraic Geometry

The investigator and his collaborators study the
following topics in arithmetic algebraic geometry:
the uniformity of small points for family of heights,
the arithmetic Kodaira-Spencer class for arithmetic surfaces
with applications to the effective Mordell conjecture,
the Gross-Zagier type formula for Shimura varieties
with applications to the Birch and Swinnerton-Dyer conjecture and
the Andre-Oort conjecture.

This is a project in a subfield of mathematics known as
number theory. Many of these questions are motivated by the
philosophy that algebraic information can be obtained
by geometric methods. At the center of this project
is the use of a symmetric group, or algebraic group,
which is an object that is both algebraic and geometric
in nature. These symmetric groups arise naturally in
physics and chemistry. It is not too ambitious
to say that the solution to the problems in this
proposal will one day affect research in cryptography,
theoretical physics, and quantum computing.